CAREER: Glaciers and Glaciology: How Nature, Field Research, and Societal Forces Shape the Earth Sciences

This project will examine the early development and subsequent evolution of the five main aspects of glaciology: ice dynamics; ice-ocean interactions; landforms and glacial geology; ice as archive of climatic records; and ice as natural resource (water). Specific case studies will be analyzed to illuminate the ways in which science, nature, and society intersect. The resultant book will address (1) the formation of glaciology and theories of ice dynamics; (2) the role of the International Ice Patrol (1913-present) in iceberg analysis and ocean-glacier interactions; (3) the establishment of theories about catastrophic glacial lake megafloods; (4) the Cold War context for ice coring and climatology; and (5) glacier retreat and hydrology.

The project has broad impacts because hundreds of millions of people worldwide live near glaciers, depend on glacier runoff for their water, reside in zones subjected to ongoing glacier hazards, inhabit coastal areas that could be flooded by melting ice sheets, and vacation in glaciated landscapes that hold particular cultural value such as national parks. The US Intelligence Community recognizes that the effects of glacier retreat potentially threaten US national security, and thus generating new knowledge about glaciers and glaciology contributes to policy and social well-being.

Research results will be disseminated in conference papers, guest lectures, and the posting of data and bibliographical materials on an online database and digital library. The project also proposes five educational activities that will produce broader impacts for students, the university, and the general public: (1) creation of a Science and Society Group, the foundational step to establishing a Center for the Study of Science and Society at the University of Oregon; (2) development of an "Inside-Out Prison Exchange Program" science and society curriculum to teach undergraduates alongside prison inmates in the unique penitentiary environment; (3) construction of a new Honors College course on the history of the earth sciences; (4) employment and training of undergraduate students in specific research projects; and (5) mentoring of a postdoctoral fellow.